Photorefractive Quantum Well Devices and Applications for Optical Scanning and Femtosecond Pulse Processing

Proposal Number: ECS-9708230 Principal Investigator: David Nolte Title: Photorefractive quantum well devices and applications or optical scanning and femtosecond pulse processing In this research, photorefractive semiconductor quantum well devices will be in investigated in the context of three different applications: (1) three dimensional laser scanning with the PRQW as the dynamic holographic thin film component; (2) a laser-based ultrasound system with the PRQW as the homodyne detection device; (3) femtosecond pulse shaping. Photorefractive semiconductor quantum well (PRQW) devices are thin film devises that operate as dynamic holographic media. They are strong candidates for applications such as biomedical optical scanning, three dimensional parts recognition and ultrafast optical pulse processing.